Project GLASS: Global Learning Action Through Science And Social Studies

9550124 Fulton This project provides funds to initiate planning for a combined grades 7-12 science and social studies curriculum on global change. A March conference brings together teams to review the available materials, discuss the role of networking in information exchange, and begin planning a statewide global change curriculum. An April meeting of a smaller working group will write a proposal for materials development to be submitted to the NSF. Building on existing efforts in the state, this proposal focuses on statewide data and its compatibility, extending the data by providing analysis and public impact information, and team progress. Cost sharing is extensive and includes 75% from the state.